Curriculum Enhancement and Revitalization Using Modern Chemical Instrumentation

Aims Community College has upgraded its chemical instrumentation with the purchase of a High Performance Liquid Chromatograph, a Gas Chromatograph, an Atomic Absorption Spectrometer, and a Fourier Transform Infrared Spectrophotometer. Through this purchase three important goals were achieved. First, the Chemical Testing Technology Program is enhanced. Training on modern equipment facilitate the student's entry in technically intensive jobs in local industry upon graduation. Second, chemical instrumentation is integrated into undergraduate courses to demonstrate scientific concepts. Student laboratory experiments have been developed for general college chemistry, organic chemistry, human biochemistry, and selected biological science courses A special set of laboratory experiments have been developed for police academy trainees on the scientific basis of analytical techniques in criminalistics. Third, the experiments that have been developed will be shared with others who teach undergraduate courses through publications and presentations.